100-inch Adaptive Optics Program

ABSTRACT AST-9423744 Shelton, Christopher An adaptive optics system working in the visible has been constructed for the 100-inch Hooker telescope using private funding sources. This project will augment the capabilities of the basic system, refurbish of the Coude spectrograph at the 100-inch Hooker telescope, and provide a fiber feed connection between the Coude spectrograph and the corrected starlight output. ***